High School Mathematics Instructional Improvement by and forTeachers

The main goal of the project is to have outstanding teachers lead seminars in a program designed to upgrade the mathematics competence of less prepared teachers. There are to be two seven-week workshops with 25 participants; each workshop will be lead by a master teacher with significant expertise in the topic of the seminar which they lead. The plan is to use these seven master secondary school teachers as the main instructional staff of the workshop. Each week a major topic in secondary school mathematics is addressed by one of the master teachers. Some curriculum materials are also prepared for use in the participants' classes. Current topics are discussed, such as problem solving activities, probability, statistics and data interpretation, use of computers in the mathematics classroom, and geometry. Also, the master teachers devote time demonstrating and discussing effective instructional techniques and classroom organization. The follow-up activities include classroom observations, interviews with participants, supervisors and students. The dissemination activities include distribution of curriculum materials developed at the workshop, a newsletter containing reports of classroom use of materials and methods in their classes, and possible use of participants as mentors in future workshops.